An Undergraduate Thermofluids Measurement and Analysis Laboratory.

Modern measurement and analysis equipment will be used to upgrade an existing thermofluids laboratory under this project. The three areas to be covered include fluid flow anemometry, pressure measurement, and temperature measurement. In each of these areas, modern sensors will be obtained and interfaced with microcomputers. These include hot wire and film anemometers, pressure transducers, total, static and boundary layer pressure probe sensors, and temperature transducers. With this equipment, a variety of experiments will be performed including fluid flow velocity, dynamic and static pressure, aerodynamic drag, and heat and mass transfer with temperature distributions in flow fields.